Precision Measurements of Crustal Deformation

This award is for continued research on crustal deformation emphasizing the development of precise instruments to measure it and analysis of the resulting data. Present work focusses on construction of an experimental fiber-optic anchor to test the new technology and to monitor the least stable o the laser strainmeter monuments.